RESEARCH INITIATION AWARD: Design and Performance Characterization of a Multipurpose Decentralized Group Membership Service

9309316 Shukla This project focuses on the structure of a group membership service, a basic building block for group-oriented distributed applications. The objectives of this project are development and performance characterization of a membership service with multiple classes of service. The emphasis is on categorical definition of service classes to support a wide spectrum of applications, adaptive status monitoring to minimize wrongly perceived status changes, a completely decentralized and hierarchical protocol requiring an overhead proportional to the quality of the service rendered, and support of a spectrum of membership semantics in spite of transient network partitioning. Techniques will be developed to support seamless distribution of large groups across a set of heterogeneous networks by exploiting the attributes of local communication environments and using topology-based optimizations. Formal techniques will be used for specification and verification implementation of the protocol. A performance metric will be developed for characterization of the performance of membership protocols. Performance will be studied with simulations based on stochastic modeling of applications, membership protocols, and underlying networks. The simulations will be built using commercial network engineering tools. The main contributions expected from this research are a single multipurpose membership protocol instead of the current application- specific variety and quantitative performance characterization which is currently lacking. ***